Mathematical Sciences: Algebraic and Geometric Topology

This project involves the use of surgery theory to study symmetries of manifolds, with emphasis on finite groups of symmetries of the sphere. The project includes three parts. The first part is the interaction of the fundamental group and the homology of a manifold. The goal is to have a good understanding of the topology of a manifold with finite fundamental group, concentrating on the cases where the universal cover is particularly simple. The methods are surgery theory, representation theory, and quadratic forms. A second part of the project is the study of group actions on spheres. For example there are well-known actions on 3- dimensional algebraic varieties, and the connection of these actions with high dimensional surgery theory could lead to an interesting synthesis. The third part of the project is algebraic considerations in L-theory and Galois cohomology. The interaction between algebra and topology has been quite fruitful in the past.